PPD-DEI: Supporting Youth with Disabilities in Science, Technology, Engineering, and Mathematics: The SIU SY-STEM Project

This project will contribute to our nation's capacity for increasing the number of
people with disabilities employed in the science, technology, engineering, and
mathematics (STEM) work force by demonstrating the effectiveness of an innovative
combination of person centered career planning activities, ongoing mentoring, and hands
on experiences in the sciences. This combination of activities is designed to 1.) increase
recognition of the interests and needs of students with disabilities in the STEM career
areas, 2.) create a more supportive academic and professional climate for persons with
disabilities, 3.) promote accessibility and appropriateness of instructional materials and
educational technologies at multiple levels (high school, community college, and
university), and 4.) increase the availability of academic enrichment experiences such as
mentoring and hands-on experiences in the STEM areas.

To meet these broad goals, the SIU SY-STEM project will:
*Identify students' preferences and interests for specific STEM-related career
areas.
*Increase receptivity of educators (secondary and post-secondary math and science
educators) and of guidance counselors for including of students with disabilities
in STEM-related curriculum experiences.
*Impact adaptations, accommodations, and instructional strategies used by
educators in STEM classes and labs at multiple levels.
*Foster academic and professional development in STEM related career areas by
increased access to career exploration experiences and mentoring.

A fundamental premise of this project is that the best way to impact employment of
persons with disabilities in the sciences is by simultaneously increasing the numbers of
people in the pipeline leading to these careers and enhancing the capacity of secondary
and post-secondary training institutions to successfully include students with disabilities.
Twenty-five teams of students, parents, educators, and guidance counselors from 25 high
schools in southern Illinois will participate in intensive one-day workshops on person
centered career planning. From these 25 student teams, six students will be selected to
participate in an intensive, on-campus Summer Institute at Southern Illinois University.
This Institute will expose students to a variety of careers in the sciences and engage them
in a series of rotations in various lab sciences. University students with disabilities will be
recruited to work in close affiliation with a graduate student mentor and faculty mentors
to provide ongoing support for the workshop and Institute participants.

The SIU SY-STEM project will impact involvement of persons with disabilities in
STEM areas of study at multiple levels, including the personal and professional
development of high school and college students with disabilities, and changes in the
educational resources, willingness, and capacity to support these students in high school,
community college, and university programs. Although this project is designed as a
regional demonstration involving high schools, consortia of community colleges, and
Southern Illinois University, it is the intention of the applicant to sustain this initiative by
building broader, more comprehensive regional/national networks and alliances. To that
end, the project includes a comprehensive evaluation component and widespread
dissemination plan.